High-Entropy Alloy Superconductors under High Pressures

NON-TECHNICAL SUMMARY

Superconductors play a key role in various sectors of the US economy ranging from energy transmission, medical imaging, magnetically confined plasma for fusion energy generation, high-speed transportation, as well as quantum computing and information technology. Superconducting materials are special because they exhibit zero resistance to current flow and spontaneously expel magnetic fields below a critical transition temperature. High-entropy alloys (HEAs) are a special class of metal that have nearly equal amounts of typically five or more constituent elements as opposed to more conventional alloys that typically contain a host metal and small concentrations of additional elements. High-entropy alloys represent a new addition to the family of superconductors as they show a phenomenon of robust superconductivity, where the superconducting transition temperature is unaffected even when the material is subjected to extreme operating conditions.

This project focuses on Rhenium-based high entropy alloys where the application of high-pressure results in novel structural modifications which has not been produced by other means. This project is establishing the superconducting properties of such Rhenium-based HEAs, uncovering a fundamental understanding of their superconducting phenomenon and seeking to tailoring their microstructure using additive manufacturing techniques to further enhance their ability to generate higher magnetic fields.

In addition to advancing fundamental scientific understanding, this project is generating broader impacts through workforce development, interdisciplinary training, and the advancement of emerging technologies. This project is also supporting graduate and undergraduate students who are receiving training at national experimental and computational facilities, leading to a pipeline of next-generation workforce in additive manufacturing and high-pressure science and technology.

TECHNICAL SUMMARY

In this project, combined theoretical and experimental expertise is called upon to investigate the superconducting properties of Rhenium-based high entropy alloys, where the application of high pressure and high temperature produces novel crystalline phases that can be recovered at ambient conditions.

This project focuses on various compositions of Rex(TiZrHfNb)(1- x) alloys, which at ambient conditions are stabilized in the body-centered cubic phase for x < 0.33 and in the hexagonal phase for x > 0.33. The application of pressure above 40 GPa causes the formation of a metastable high-density body centered cubic phase whose full complement of superconductivity properties are being established. The crystalline modifications for various compositions of Rex(TiZrHfNb)(1- x) alloys are being studied under high pressure and high temperature conditions using x-ray synchrotron sources combined with laser heating. The superconducting properties are being investigated under high-pressures and low temperatures using the NSF supported Physical Properties Measurement System at the University of Alabama at Birmingham. This study also includes corresponding first-principles calculations based on density functional theory, electron-phonon calculations, and stochastic random structures for various high-entropy alloys as a function of external pressure. The resulting simulations of structural, electronic, and superconducting properties are being compared directly with experiments, which are helping benchmark the computational frameworks. The Rhenium-based high entropy alloys are being fabricated by multiple techniques offering unique microstructural control hypothesized to increase the upper critical magnetic field which is of importance for superconductors.

In addition to advancing fundamental scientific understanding, this project is generating broader impacts through workforce development, interdisciplinary training, and the advancement of emerging technologies. This project is also supporting graduate and undergraduate students who are receiving training at national experimental and computational facilities, leading to a pipeline of next-generation workforce in additive manufacturing and high-pressure science and technology.